A Workshop on Assessing Global Glacier Recession

0307144
Barry
A 3-day workshop will be convened at the National Snow and Ice Data
Center, Boulder, CO in March 2003 with the aim of evaluating current
methods of determining the worldwide recession of mountain glaciers over
the last half-century or longer. Recent evidence suggests an acceleration of
glacier mass loss in several key regions and it is imperative for
assessment of ice contributions to global sea level rise and of future
water resources from glacierized basins that a more comprehensive
evaluation be made of glacier changes.
The broader impacts of this workshop include: bringing together
experts from leading groups, with under-represented young and female
scientists from North America and elsewhere. About 25-30 selected
individuals will be funded and the workshop will be open to other
interested individuals.
The publication of a workshop report in EOS will bring the ideas to a
wide scientific audience